U.S.-Australia Cooperative Research: Thermal Spray Processing of Polymers

9513462 Berndt This award will support the travel and minor research costs for five American investigators under the direction of Dr. Christopher Berndt, Department of Materials Science and Engineering from the State University of New York at Stony Brook, to enable the group to conduct cooperative research regarding the thermal spray processing of polymers with a group of Australian researchers from the Department of Materials Engineering at Monash University under the guidance of Prof. George Simon. The project aims to improve the quality and types of polymers and composites that can be thermally sprayed as coatings on metallic substrates. Lower melting points and the macromolecular structure will influence lamellae formation, diffusion and oxidation mechanisms. This project brings together the thermal spray expertise from the American researchers with the Australian polymer experts. Fundamental explanations will provide insight to polymer adhesion and environmental degradation. This research is important in promoting the technology into petrochemical and automotive industries requiring corrmsion resistant barrier coatings. The collaboration in Australia is supported through the Department of Industry, Science and Technology.